Mathematical Studies on Myosin - A Molecular Motor

Bentil
9973208
The investigator develops and analyzes stochastic
mathematical models of the actin-myosin molecular motor system,
in collaboration with David Warshaw and Kathleen Trybus,
experimental biologists at Vermont. The actin-myosin system
occurs in the contractile mechanisms of muscle cells. Model
mechanisms that incorporate the dynamics of actin-myosin
interaction are constructed based upon current biochemical,
structural and mechanical knowledge of the myosin motor protein
obtained from both optical trapping and in vitro motility assays.
Models are tested in the laboratory by the experimental
collaborators. Once developed and validated, the models form the
basis for a description of the evolving complex
micro-interactions in the overall framework of muscular
contraction studies. The models may also apply to other
molecular motors (e.g. kinesin, dynein, and RNA polymerase).
The development of new experimental techniques, "optical
tweezers," permits new measurements of the very small forces
exerted in individual cells by molecular motors. These motors
are the means by which cells effect movements. A basic mechanism
in contracting muscle cells is the actin-myosin molecular motor
system. The investigator and his colleagues develop and analyze
stochastic models of this system, incorporating the new data
developed in recent experiments. Models of this system will lead
to better understanding of a cell mechanism fundamental in
biotechnology.